Nonlinear and Electro-Optical Devices for Optical Communica-tions

A three-pronged effort will be conducted on coherent optical sources and devices with potential applications to optical communication systems. Specific projects include broadly tunable optical parametric oscillators, electrically tunable semiconductor lasers, and noise and stability properties of semiconductor lasers. For many applications in optical communications, it is necessary to have a coherent light source that is continuously tunable over a large spectral range. Recently, the first optical parametric oscillator has been operated using a single crystal of an organic material (urea). The spectral range of interest is very broad and includes a number of important wavelengths for communications. In addition, in this program truly smooth continuous tuning of semiconductor lasers by electrical means is being sought. A new project will be initiated to study the noise and stability properties of semiconductor lasers which is fundamental to successful optical communication systems.